Presidential Young Investigator Award: Research in ParallelArchitectures and Algorithms

This research program in parallel algorithms and architecture examines the design of special purpose VLSI architectures, parallel algorithms for VLSI architectures, and the design and analysis of reliable interconnection networks. An innovative architecture with efficient local and global communication features is designed to support a wide variety of computations: numerical computations, geometric problems, graph problems, and others. The model provides substantial speedups for a wide class of problems in these areas. The regular near-neighbor connections made the architecture suitable for VLSI implementation. This architecture is also well suited to many image-processing applications. Current research is directed towards design of efficient parallel algorithms to run on this architecture, as well as the study of the implementation of these in VLSI.